Workshop on Learning on Cognitive Development

IIS-9900498
Weng, John
Michigan State University
$30,000.00 - 15 mos.

Workshop on Development and Learning

There is a growing interest in the study of cognitive and behavioral
development and the interactions between what is innate and what is
learned during the development. New theories and architectures for
development are being studied in fields related to both artificial and
natural intelligence. Scaling up from ground, both in size and functionality,
is required for dealing with real-world problems and for better
understanding natural intelligence. How does an individual, biological or
artificial, scale up its cognitive and behavioral capabilities through interactions
with the environment? What are the common mechanisms
that enable scaling up for a variety of cognitive and behavioral
capabilities and their integration? Since this important subject is
interdisciplinary, this workshop will bring together researchers from
closely related fields, including artificial intelligence, machine learning,
computer vision, pattern recognition, speech recognition, robotics,
animal learning, developmental psychology, neuroscience and computational
linguistics. The aim is to discuss (1) the role that development and
learning can play in the development of artificial and natural intelligent
agents, (2) the common principles that are shared by the development for
very diverse cognitive and behavioral capabilities such as vision, speech,
language, reasoning, planning, decision making, locomotion and
object manipulation. (3) important directions for future research on
development and learning, and (4) short-term and long-term applications.
Findings of the workshop will be documented in a report which will be widely
disseminated in the various related research communities. A website on
development and learning will be created from this workshop as a long-term
cross-disciplinary information center for those who are interested in
artificial and natural intelligence.